Metric Geometry of Groups and Surfaces

Abstract

Award: DMS-0906086
Principal Investigator: Moon Duchin

This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).

The projects in this proposal are clustered around themes in
low-dimensional topology, asymptotic geometry, and the dynamics
of group actions. Teichmuller space and the mapping class group
are objects for special attention, and tools developed for that
setting are often promising for wider study in metric geometry
and geometric group theory. The PI proposes to build on recent
work on flat metrics, their length spectra, and the associated
boundary theory, as well as work on synthetic curvature
conditions and their applications to random walks. Specific
avenues of future investigation include asymptotics on the space
of singular flat surfaces; filling inequalities and higher
divergence functions adapted from symmetric spaces to group
theory; and the use of intersection patterns of metric
half-spaces to study the dynamics of isometries.

While quite abstract, ideas in this work can also prove
beautifully applicable-- for instance, Thurston's theory of flows
on surfaces has direct and strong applications to the study of
mixing in fluid dynamics. More immediately, though, this
research area addresses foundational questions toward
understanding geometric structure of complicated spaces in the
large, in the small, and changing over time.